Digital Mass Storage and Communication Upgrade for the Institute of Geophysics and Planetary Physics

Orcutt 9413731 Funding from this award will be used to upgrade and enhance network and digital mass storage facilities at the Institute of Geophysics and Planetary Physics (IGPP) at Scripps Institution of Oceanography (SIO). Network enhancements will be implemented through the purchase, installation, and optimization of a Fiber Distributed Data Interface (FDDI). This system will be of a high speed token ring architecture and allow simultaneous, rapid access of large data sets by numerous users. The FDDI will take advantage of fiber optic capabilities already installed in the IGPP building. In addition, funds will be provided for the purchase of mass storage devices to interface with network assets. 185 GByte optical library units will provide the basis of this mass storage capability which will be used to store data from various large-scale scientific campaigns addresing studies in atmospheric and global change research, mid-ocean ridge processes, global and regioal seismology, mantle convection, geomagnetism, nuclear test detection studies and space geodesy. The University of California at San Diego will provide matching funds including wiring of the IGPP building with fiber optic cabling. ***